Numerical Methods for Scattering Problems in High Frequency

The investigator and his colleagues develop numerical methods for scattering

problems, and perform a detailed analysis of these methods. Specifically,
they develop boundary element methods for integral formulations
of the Helmholtz equation, in which the basis functions are asymptotically
derived. Each basis function is the product of a
smooth amplitude and a highly oscillatory phase factor, like the asymptotic
solution.
The phase factor is determined a-priori by geometrical optics and the
geometrical theory of diffraction, while the amplitude is a smooth function.
This choice of oscillatory phase factor, ensures that the number of
unknowns is virtually independent of the frequency. The basis functions
being studied are designed in a way that the matrix, resulting from the
discretization, has a number of significant entries which is proportional to
the number of basis functions, in the large frequency limit.
Hence, this matrix can be approximated with a sparse approximate
matrix. The investigator and his colleagues explore the use of the sparse
matrix instead of the original matrix, in order to obtain an approximate
solution to the problem, and they study the solution of the approximate
problem with iterative methods, and multi-grid methods. In addition they
study the use of the sparse matrix as a preconditioner.
This new methodology is being developed by studying problems of increasing
complexity, such as convex domains with corners in two dimensions, and
convex three dimensional domains. The impact of this research is therefore
in the development of discretization schemes for the Helmholtz equation in
which the number of unknowns is virtually independent of the frequency, and
the design of optimally fast algorithms for solving those discrete problems.
This transforms problems which are computationally exceedingly difficult if
not intractable, into ones which are readily solved.

The solution of scattering problems has many applications in technology.
Applications include remote sensing, ultra-sound imaging of tissue,
non-destructive testing, geophysical prospecting, the design of reduced
radar signature airplanes, and the determination of the acoustic signature
of submersible vehicles. For the current configurations of interest,
geometrical complications and/or compositional complexity in the underlying
structure make manual solutions practically impossible. Moreover, in the mid
to high frequency regime, standard computational approaches require an
exceedingly large amount of calculations, leaving some problems
computationally intractable. The fast and efficient algorithms for
scattering problems developed by the investigator and his colleagues will
broadly impact design and discovery tools in the application areas mentioned
above.